On-Site Research Program to Improve the Quality of Labor Statistics

This award extends for one year the American Statistical Association project entitled "On- Site Research Program to Improve the Quality of Labor Statistics". The plan for subsequent years is to effect a merger with similar on- site research programs conducted at the Bureau of Census and the National Center for Education Statistics. The program, which was initiated at the Bureau of Labor Statistics in 1987, brings senior research fellows and associates to the Bureau for periods of up to one year. Its broadbased goal is to help bridge the gap between academic scholars and governmental scientists by exposing the fellows and associates to the methodological problems and policy issues likely to be encountered only in a large scale Federal statistical agency and by exposing government social scientists to new theoretical developments which might have application to their work. Residence at the Bureau allows fellows and associates to carry out research that would be difficult if not impossible to do without the ready access to the data resources of the Bureau of Labor Statistics which the program provides.